FMitF: Track I: Formally Verified Sandboxing for Packet-Processing Programs

Modern computing applications process vast amounts of data by
collaboratively employing many thousands of server machines residing
in computing clusters. To support such applications, the network
interconnecting servers and the packet-processing software on the
servers should be fast (supporting high data rates and low delays),
flexible (enabling diverse data-processing applications), and safe
(e.g., programs must run without crashing). Berkeley Packet Filter
(BPF) has emerged as a mechanism to meet these goals and accelerate
novel high-performance packet-processing applications. BPF is
currently deployed in many production systems. BPF achieves
flexibility and performance by running user-developed programs in the
context of the operating system. To ensure safety of such applications, this project will
develop provably-correct static analyzers for BPF programs, protecting
the operating system from security vulnerabilities, denial-of-service
attacks, and crashes. This project will advance the state-of-the-art
in the static analysis, program synthesis, and testing of networking
applications such as load balancers, packet filters, and performance
monitors. This project will also educate graduate, undergraduate, and
high-school students on foundational techniques for reasoning about
correctness, network monitoring, and filtering.

This project has three technical goals. The first is to develop a
verified Berkeley Packet Filter (BPF) static analyzer based on an abstract interpretation that is
correct by construction. The project will address key intellectual
challenges involving the formalization of the BPF instruction set and
modeling of domain-specific sandboxing properties. Currently, an
in-kernel BPF static analyzer checks the safety of loaded BPF programs
by performing range-tracking, memory safety, and freedom from
information leaks. However, this analyzer has deficiences, resulting in the
execution of unsafe programs and exploitable vulnerabilities. The
second goal of this project is to develop an analyzer in the C
programming language that can be usable as part of the kernel, by
leveraging differential analysis, program synthesis, and testing. The
final goal is to design a verified BPF toolchain based on LLVM, by
developing validated translators from C to BPF bytecode.